ITR: Integration and Analysis of Reliable Networking for Remote Science, Education, and First Responders

This proposal was submitted to NSF in response to the ITR solicitation NSF 04-012. This proposal is follow-on to an existing award: 0087344. This project will conduct systemic interdisciplinary and multi-institutional research regarding the quality of service achievable by a highly functional wireless cyberinfrastructure environment. While doing so, it addresses several diverse scientific networking predictability needs for rural and remote areas.